East Coast Van Pool: Shared Mobile Laboratory Infrastructure for the Academic Research Fleet

This project supports shared mobile laboratory infrastructure enabling scientific operations aboard research vessels operating as part of the U.S. Academic Research Fleet. These portable laboratory facilities expand shipboard scientific capabilities by providing specialized laboratory space and equipment needed to support multidisciplinary oceanographic research, environmental observations, sample processing, and other mission-specific scientific activities. The project strengthens shared research infrastructure while supporting modern ocean science, workforce development, and research and education activities relevant to ocean observation, environmental prediction, coastal resilience, and stewardship of marine resources.

The project provides management, maintenance, transportation, and operation of the East Coast Van Pool, a shared fleet of portable laboratory facilities supporting research missions aboard Academic Research Fleet vessels. The portable laboratories provide flexible scientific workspace and specialized capabilities that augment shipboard laboratory capacity and accommodate diverse research requirements across multiple scientific disciplines. These activities help maintain the technical infrastructure necessary to support a broad range of oceanographic research conducted aboard Academic Research Fleet vessels and ensure continued access to reliable, mission-specific laboratory capabilities for the research community.